Travel: NSF Student Travel Grant for 2024 IEEE Symposium on Security and Privacy (IEEE S&P 2024)

The IEEE Symposium on Security and Privacy (IEEE S&P) is recognized as a premier platform for showcasing advancements in computer security and electronic privacy. This award will support student travel to the 45th edition of this conference, to be held May 20-23, 2024 in San Francisco. Funding this travel will allow these students to showcase their research and receive feedback from experts in the field, as well as engage with those experts across a wide range of security and privacy topics.

This grant will provide travel support to about 20 students who otherwise have limited travel funding and so might not be able to attend. Criteria for selection include evidence of a serious interest in the field, as demonstrated by coursework and/or project experience. The organizers will also encourage participation of women and students from other under-represented groups, supporting students from a wide range of institutions.